Mathematical Sciences: Midwest Dynamical Systems Conferences

9403897 McGehee The support is for the Midwest Dynamical Conferences. The meetings involve presentations and workshops conducted by principal speakers on the the frontier level of research in many aspects of dynamical systems and its applications. This series has a strong educational aspect for graduate students and provides a suitable forum of interaction for recent PhD's in advancing their research potential. ***